Axonal Outgrowth and Dendritic Development of Cortical Neurons

Since Ramon Y Cajal first described the elaborate shapes of neurons in the mammalian brain, it has been of interest to understand how the dendritic and axonal branching patterns of cortical neurons develop. One intriguing aspect of development is the relationship between axonal outgrowth and the formation of dendritic structure. In the past, very few studies of cortex were designed specifically to address this issue, primarily because available morphological techniques did not favor simultaneous examination of dendritic and axonal arbors. The technique of intracellular dye injection has overcome this limitation, but as yet it has not been applied to questions of correlated dendritic and axonal development in cortex. The objective of Dr. Claiborne's research is to correlate axon and dendritic development of cortical neurons using intracellular dye injection and both light and electron microscopic analyses. The work focuses on two questions: (1) Does synapse formation by the axon precede dendritic outgrowth? (2) Once dendritic growth is initiated and the adult pattern of dendritic branching emerging, does further axonal development occur? These questions will be addressed using an in vitro brain slice preparation from developing rat pups. The results of her studies will yield important and useful information on the development relationships between dendritic branching, axonal branching and synaptogenesis in identified neurons. Many of the issues to be evaluated are central to defining mechanisms of growth and differentiation of neurons in the central nervous system.